Center for Biophysical Studies on Macromolecular Assemblies

A research and training center for quantitative systems biology of organized macromolecular assemblies will be established. The center, formally called the Center for Biophysical Studies on Macromolecular Assemblies, will be an integral part of a new Institute for Biophysical Research being developed at The Johns Hopkins University. The Institute and the Biological Research Center will integrate faculty from different campuses. Macromolecular assemblies are now known to be wide spread and include the gene transcription complexes, the membrane transport systems, contractile fibers, and the complexes present at DNA replication forks. These assemblies are central elements to life processes and lie at the interface between traditional disciplines of cell biology and biochemistry. Four interacting projects will be the initial research focus of the Biological Research Center, namely, the structure and regulatory interactions of protein-nucleic acid systems, the molecular mechanics of the cytoskeleton, the structure and function of protein oligomeric complexes such as proton-translocating ATPases, and the problem of protein stability and folding. The overall efforts of the Center will include collaborative research, interdisciplinary training, education and outreach. Through the results of its research and training programs, the Center for Biophysical Studies on Macromolecular Assemblies should have a worldwide impact on fundamental and applied biology. The Center will integrate the new technologies of genetic engineering, computational science and molecular graphics, and structural instrumentation, to develop a framework for the physical analysis of the functional mechanisms of macromolecular complexes. These technologies have set the stage for a new era in the quantitative biophysical study of organized macromolecular systems. The general discipline of quantitative biology and molecular biophysics has been neglected, but with the advent of the new technologies has become very important. These are very central questions in basic biology, and these research projects will be at the core of advances in basic biological sciences in the 1990s. In addition, this work is very important for the future development of biotechnology and the pharmaceutical industry, among other applications. To strengthen the already strong group, new faculty positions will be created to add to the 17 current faculty members. A special postdoctoral training program will form a major component of the Center. This program will provide a high-level interdisciplinary training for young scientists, who will be in a good position to advance the emerging field of macromolecular systems biology. The expectation for the collaborative projects in the center is that a set of general principles and new conceptual frameworks may emerge. This would allow a more rigorous understanding of living systems and more predictive power in the application of biological science to developing future biotechnologies.